Stereochemistry of Nanomolecules

Research in three related areas will be pursued. In the first part, heterotriangulenes will be used as building blocks for nanostructures. These molecules with molecular weights of over 1000 Daltons will be investigated with regard to inclusion compound formation, and polarizability and electron-transfer involving the pi-aromatic systems. In the second part, topologically stereoisomeric entwined networks will be synthesized, whose structures are based on graph theory. In the third part, the synthesis of bowl-shaped polycyclic aromatic hydrocarbons will accomplished. The dynamics of the bowl-to-bowl inversion will be studied by dynamic NMR spectroscopy. Derivatives of these compounds will be coupled to form macrocyclophanes related to fullerene fragments. %%% This grant from the Organic Dynamics Program supports the work of Professor Jay S. Siegel at the University of California, San Diego. Large molecules will be synthesized which contain internal cavities. Inclusion of other molecules into these cavities will be studied as well as the intramolecular interactions which will be detected spectroscopically. Bowl-shaped large molecules will be prepared and the bowl-to-bowl inversion barrier will be determined by spectroscopic methods. These bowl-shaped molecules will also be coupled to produce fragments related to fullerene, a recently discovered allotrope of carbon. Finally, molecules will be synthesized where chains of atoms become entwined. The particular entwined pattern is based on graph theory, a mathematical discipline.